The Close-up View of Massive Star Clusters and their Gas

This proposal investigates properties of newly formed massive clusters of stars, which are thought to be analogs of the large star clusters (so-called "globular clusters") that formed very early in the history of our Milky Way Galaxy and many other galaxies. The team will acquire molecular-line and dust-continuum data, using the most advanced millimeter and submillimeter radio telescopes such as the Atacama Large Millimeter/Submillimeter Array, to investigate the star formation efficiency in these young massive clusters. Characterizing this efficiency has important ramifications for a star cluster's survivability, as well as for how star formation will progress near the cluster and throughout its host galaxy. The team's low-resolution pilot study of a young massive cluster hints at a surprisingly efficient conversion of gas into stars. To make progress, that cluster and a similar one will be studied with the high angular resolution and sensitivity that have only recently become available for southerly clusters. A low-resolution study of a northerly cluster will also be undertaken to begin exploring this important topic in a third setting. The PI will continue her successful efforts to involve women and other underrepresented groups in her research. She will also continue to give public talks